Proposal to Fund 1994 IEEE Information Theory Workshop on Information Theory and Statistics

The 1994 IEEE/IMS Information Theory Workshop on "Information Theory and Statistics" will present papers in the related fields of (1) Stochastic complexity and universal data compression, (2) randomization complexity and information theory, (3) Markov random fields, (4) Vector quantization, classification, and regression trees, (5) theory and applications of wavelets, and (6) nonparametric function estimation. In addition to these specific topics, there will be two open poster sessions supporting research in all fields related to the theme of the workshop. The workshop will be held in the Old Town Holiday Inn, Alexandria, Virginia over the dates of October 27 through October 29, 1994. The IEEE Information Theory Workshops play an important role in exploring and supporting critical research trends in the broad areas of communication system utilization and digital data storage. This area of research is commonly referred to as the field of Information Theory and over the last forty years has played a central role in the development of the nation's communications infrastructure. Recently, there has been a significant rise in common research conducted by Information Theorists and Statisticians. It is the aim of the 1994 IEEE/IMS Information Theory Workshop on "Information Theory and Statistics" to enhance this work and improve the cross-fertilization of ideas between the respective research communities. To support this collaboration, this workshop is being co-sponsored by the IEEE Information Theory Society and the Institute of Mathematical Statistics.